Acquisition of A Digitized Microscope with Applications to Strain Studies, Volume Loss Analyses and Fission Track Dating

This award provides one-half the funds required for the acquisition of a digitized microscope system that will be used for research in the Department of Geological Sciences at Brown University. The University will be providing the remaining funds. The microscope system will be devoted to data acquisition in petrological research involving the study of strain and volume loss associated with the metamorphism of sediments accreted at convergent plate boundaries, and will also be used in fission track dating applications.